Introduation of GC-MS into the Undergraduate Curriculum

This project incorporates a capillary gas chromatograph-mass spectrometer (GC-MS) into the undergraduate curriculum at Williams College. The goals of this project are to update our GC instrumentation to include capillary capability and to provide our students with hands-on exposure to mass spectral analysis. The GC-MS impacts the curriculum at the level of the introductory and advanced courses, as well as the undergraduate research program. The project includes experiments that demonstrate applications is analytical, organic, environmental, and bioorganic chemistry. The institution is matching the NSF grant with an equal amount of funding.